Collaborative Research: Probabilistic models and geometry for high dimensional data

The inference problems associated with high-dimensional genomic data offer fundamental challenges for modern statistics, machine learning, and data-mining research. Methods that have had success in this domain impose constraints on models incorporating notions of simplicity, smoothness, or robustness. The constraints are often formalized either as priors for Bayesian methods or as geometric criteria for machine learning methods. The heart of this proposal is to develop and relate the importance of the geometry underlying the data to probabilistic modeling. The specific research foci of the proposal are: 1) The exploitation of geometric assumptions for problems of model uncertainty and variable selection in high-dimensional models; 2) A Bayesian framework for the use of ancillary or unlabeled data in predictive modeling; 3) Theory, methods and computation for nonparametric Bayesian kernel models; 4) Novel methods for nonlinear dimension reduction for high-dimensional data from regularization and geometric perspectives.

The proposal develops theory, methods and computational tools for statistical modeling motivated by applications in functional genomics. Modern molecular biology has generated data of a rapidly escalating scale and complexity -- high-throughput genomics data, genetic and sequence information, proteomic and metabolomic data, and other forms of more traditional biomedical or clinical information. Modeling this data for predictive phenotypes of prognosis, diagnosis, and pathway deregulation as well as understanding relevant variables and their associations are fundamental challenges for modern statistics, machine learning, and data-mining research. These methodological developments will have impact on several other scientific areas including biology, engineering, environmental and health science, and social sciences.